Advanced Integrated Wastewater Pond Systems

9354011 Albertson This program will conduct a five-day workshop for 30 faculty participants to provide information and problem-solving experience for palnning, designing, building, and operating Advanced Integrated Wastewater Pond Systems (AIWPS). The 30 faculty pariticpants will be selected from faclulty teaching environmental engineering courses to undergraduate students in the U.S. A particular effort will be made to identify women and minority faculty. Participants will interact with experts and among themselves to learn the various aspects of AIWPS. The workshop will include illustrated lectures by experts, discussions, field trips, and practical problem-sovling sessions. The prospects for establishing undergradute reserach projects in regular curricula, how to sustain communication and program development, and how to integrate this technology with other related technologies in classrooms will be among the discussion topics. A newsletter will provide long-term interaction among the participants. ***